Establishment of a Center for the Study of Cell Morphology and Function

This proposal requests funds to establish a Biological Facilities Center for the Study of Cell Morphology and Function. Five major instruments are requested: l. A transmission electron microscope with facilities to section and process specimens at low temperature. It will be used for immunogold localization of a wide variety of antigens and for ultrastructural visualization of cell and cytoskeletal morphology. 2. A high-spatial-resolution low-light fluorescence microscope system to track the dynamics of fluorescently labeled cytoskeletal proteins and the position and shape of labeled cells in developing embryos while minimizing photodynamic damage. 3. A workstation that combines electrophysiological equipment with imaging of fluorescence ratios from fura-2 to map spatial patterns of neuronal activity and intracellular Ca2a in electrically stimulated neural assemblies. 4. A laser-scanning confocal microscope that rejects out-of- focus fluorescence that will enable high-speed optical sectioning of thick or dynamically changing specimens for studying the role of Ca2+ in controlling the cytoskeleton and for measuring local demains of Ca2+ or pH in single neurons, thick ganglia, or heterogeneous epithelia. 5. A Fourier transform nuclear magnetic resonance spectrometer that will permit continuous monitoring of intracellular metabolites, pH, sodium, and hemoglobin polymerization in cell and organelle suspensions such as cyanobacteria, oxyntic cell vesicles, and erythrocytes. This equipment will be used by the forty research groups to be housed in a new Life Sciences building as well as hundreds of graduate students who are involved in ongoing research projects. Expected contributions will be the development of a scanning confocal microscope for high-speed biological observation as well as innovative solutions to current problems in molecular biology.